From Text Corpora to Text Databases: Research in Text Processing and Retrieval

9302615 Strzalkowski From Text Corpora to Text Databases: Research in Text Processing and Retrieval This is the first year funding of a three-year continuing award. The goal of this research is to explore the potential of natural language processing in automated information retrieval from large, minimally structured text libraries. This effort includes development of more effective techniques of indexing, routing, contents approximation, abstracting and creation of hierarchical domain maps from textual data. Both linguistic and statistical methods are used. The main trust is to find satisfactory solutions to the following problems: (1) obtaining an accurate and versatile representation of database contents for search purposes; and (2) devising algorithms that can accomplish this task with the speed and robustness to match or exceed that of statistical systems. In order to create an accurate representation of database contents that would be able to support various types of search, an extensive natural language processing component is created. Linguistic processing includes stochastic part of speech tagging, dictionary- assisted stemming, syntactic parsing, phrase extraction and disambiguation, and semantic correlation of concepts underlying the database domain. This research is based extensively on empirical experiments with large text collections. It is expected to produce technologies that will significantly improve the expected performance levels for top-of-the-line full-text information retrieval systems. ***